Universals in the Structure and Evolution of Kinship Classification

All human societies have systematic ways of reckoning kinship relations, and the study of these systems has been a specialty of cultural anthropology for over 100 years. This project applies simple but powerful models from graph theory to analyze cross-linguistic and historical linguistic marking relations and evolutionary sequences in a sample of systems of kinship classification, the Polynesian, Oceanic, Salishan, Tibeto-Burman and Dravidian families. The research will integrate the linguistic theory of Joseph Greenberg on kinship universals into the mainstream of kinship studies. It will demonstrate the necessity of using historical linguistic data to determine the direction of change in kinship terminology. The discovery of convergent developments in different linguistic families can then inform more abstract theories about trends in the evolution of kinship terminology in general. The data on the kinship systems to be analyzed will come from published sources. The research will make significant contributions to kinship theory, cognitive and linguistic anthropology and cognitive science. It will add to scientific knowledge in cultural anthropology through the discovery and explanation of lawful regularities in kinship, the most fundamental of all human classification systems.